2022 Waterman Award

The National Science Foundation (NSF) has named Dr. Jessica Tierney one of the three recipients for the 2022 Alan T. Waterman Award round. This award is NSF's highest honor that annually recognizes an outstanding researcher who is 40 years or younger or not more than 10 years beyond receipt of the Ph.D. degree, by December 31 of the year of the nomination. The award funds the recipient's research in any field of science or engineering. This year, each awardee will receive a $1 million grant over a five-year period for further advanced study in his or her field.

Dr. Tierney is an associate professor at the University of Arizona. Her research focuses on understanding the history of Earth through paleoclimatology, which looks deeply at past climate change, with the goal of improving the understanding of what the future holds. She specializes in generating organic geochemical records of paleoclimate, derived from fossil molecules known as biomarkers that are preserved in sediments and rocks.

Dr. Tierney has received recognition for her work, receiving support from NSF in the past and being named a Packard Foundation Fellow, an American Geophysical Union Fellow, a recipient of the Thomas R. Brown Distinguished Chair in Integrative Science, and a lead author on the intergovernmental Panel on Climate Change Sixth Assessment report. In addition to her research, Dr. Tierney mentors Undergraduate Students and Graduate Students, and works with Postdoctoral Scholars in a variety of research topics.